CRCNS US-German Research Proposal: Language representations in bilinguals

The overarching goal of this project is to uncover how language-related information is represented and
processed in the brains of bilinguals. To do this the project will use functional magnetic resonance imaging to
record brain activity in bilingual subjects while they read passages of text in two different languages.
These data will be analyzed and modeled using a cutting-edge approach called voxelwise modeling.
The results of this study will provide crucial insights regarding how syntactic and semantic
information about multiple languages are represented and organized in individual bilingual brains,
and how these representations are flexibly deployed to facilitate multi-language comprehension.
Improving our understanding of language representations in bilinguals will improve diagnosis and
treatment of language disorders, enhance methods for language education, and advance machine
translation technologies.

Over the past 10 years the project team has developed a novel and sensitive voxelwise modeling approach for
analyzing and modeling fMRI data. This approach recovers functional maps in the human cerebral cortex in
unprecedented detail. The project team will use this powerful framework to study language representation in the brains of
bilingual speakers. In Aim 1 the project will compare lexical semantic information represented in cortical maps obtained
during language comprehension in bilinguals in both German and English. In Aim 2 the project will compare syntactic
information represented in cortical maps obtained during language comprehension in the same individuals
examined in Aim 1. In Aim 3 the project will compare cortical semantic and syntactic maps obtained during language
comprehension in bilinguals who know two very different languages, Chinese and English. Together these
experiments will answer several important questions about semantic representation in bilinguals: Are the
functional representations of semantic and syntactic information similar or different across languages? What are
the similarities and differences in semantic representations across languages? How are syntactic features
represented and how do these representations differ across languages?

A companion project is being funded by the Federal Ministry of Education and Research, Germany (BMBF).